SBIR Phase I: Hybridization and SNP Detection Using Unlabeled Target DNA

This Small Business Innovation Research (SBIR) Phase I research project aims to develop a new platform for performing multiple DNA hybridizations that uses optically encoded beads attached to a probe that is homologous to a region of the target and a labeled reporter molecule that is homologous to an adjacent segment of the target. The binding of the probe and the reporter to the target results in the enhanced fluorescence of the bead. Such a system allows for the very specific detection of target hybridization and through the optically encoded beads offers the capability for extensive multiplexing and rapid analysis.

Currently suspension array technologies allow multiple DNA hybridization experiments, such as for single nucleotide polymorphism (SNP) analysis. Yet, manufacturing bottlenecks, high cost and flexibility issues remain a problem. The proposed system addresses some of the flexibility issues and may offer a less expensive and easier way of generating the reagents for such experiments.